Holomorphic Disks and Low-Dimensional Topology

DMS-0234311
Peter Ozsvath

The proposal deals invariants for three- and four-dimensional manifolds,
specifically those which the proposer constructed in collaboration Zoltan
Szabo. These invariants appear to be closely related to gauge-theoretic
(Donaldson and Seiberg-Witten) invariants, except that they have the
advantage of being more combinatorial in nature than their gauge-theoretic
predecessors, and hence easier to calculate. To illustrate their strength,
one can reprove some results in four-dimensional differential topology
which were obtained previously using gauge theory. These invariants also
have new topological applications which go beyond gauge theory. For
instance, they can be used to give new restrictions on knots whose
surgeries give lens spaces. The author hopes to further extend this
theory, to see what further insight they may give to topology in
dimensions three and four.

The proposal deals with studying the intrinsic structure of three- and
four-dimensional spaces. The study of four-dimensional spaces was
revolutionized by Simon Donaldson in the early 80's by his introduction of
"gauge-theoretic techniques". These techniques associate to a space the
space of solutions of certain partial differential equations (which come
from mathematical physics). Course properties of these solution spaces are
then used to give insight into the finer structure of the underlying
spaces on which the equations are defined. The proposal deals with efforts
at circumventing these (often difficult to identify) auxiliary spaces of
solutions, to give more directly combinatorial approaches to understanding
the way three- and four-dimensional spaces fit together.